MVSTSN - A Strategy for a Workshops/Computer Conferencing Teacher Network Support Group

The primary goal of this project is to evaluate the effectiveness of linking computer conferencing and workshops as a strategy to reinforce and motivate teachers to put to use in their classrooms and laboratories what they learn in workshops, to encourage teachers to develop modifications of ideas and methods they have been exposed to in workshops, and to stimulate the creation and sharing of new ideas among teachers. Those participating in the study are science teachers in the Merrimack Valley of Massachusetts teaching in public schools, private schools, and colleges. This mix of participants, collaborating as equals and colleagues is a special feature of this study. The outcome of this project will be useful information both for those who give workshops and for those seeking to foster the use of computer conferencing among teachers. The project's successful conclusion will have broad application as a useful model for the collaboration of science teachers.